Tools for Thinking about Complex Issues in Science and Public Policy

The project will use artificial intelligence techniques to construct a prototype computer system to support and coach scientific argumentation. Running in a network environment, the system will help students engage in a variety of science-related argumentation activities, including discussing (a) competing theories and the implications of simulated or real experiment they have carried out and (b) implications of scientific knowledge for public policy issues. Students will be able to build, examine, and refine arguments using several different knowledge based tools and will be able to seek advice on which parts of complex arguments deserve more attention, and why. The prototype will address several specific scientific and policy topics in the areas of global warming and plate tectonics. We will test the system with urban middle or high school students and with non-science-major undergraduates and develop a clear plan for building authoring tools and a run-time environment that could be used to develop similar tools for other domains.